Microstress, Domain Structures, and the Magnetic Properties of Minerals and Rocks

The two priority goals of this project are (1) to extend magnetic domain calculations with emphasis on incorporating effects from micro- and macrostress and (2) to develop micromagnetic theory at a level that will allow proper testing of models with the use of experimental data such as bulk coercivity and isothermal remanent magnetization.